Quantum New Mexico Institute (QNM-I) Theory Hub

Quantum information science (QIS) seeks to harness the laws of quantum mechanics to enable capabilities that are beyond the reach of conventional technologies, including more powerful computing, secure communication, and ultra-precise sensing. Continued U.S. leadership in this rapidly advancing field depends on sustained investment in the fundamental scientific ideas that underlie future quantum technologies and on educating the next generation of researchers. The Quantum New Mexico Institute (QNM-I) Theory Hub will serve as a national center for theoretical quantum information science, bringing together university researchers, national laboratories, and industry to address foundational scientific challenges while training early-career scientists. Through collaborative research, prize postdoctoral fellowships, conferences, workshops, and outreach programs, the Hub will strengthen the nation's quantum research community, expand the quantum workforce, and promote the progress of science in support of future economic competitiveness and national security.

The QNM-I Theory Hub will advance theoretical research in four complementary areas: quantum algorithms and computing architectures; characterization and control of complex quantum systems; quantum sensing and metrology; and quantum communication and networking. Researchers will develop new methods for fault-tolerant quantum computation, hybrid quantum-classical algorithms, quantum simulation, optimal control, verification of quantum devices, adaptive quantum measurements, and scalable photonic quantum networks. A nationally competitive Prize Postdoctoral Fellowship Program will foster interdisciplinary collaborations among faculty, postdoctoral fellows, scientists at Los Alamos and Sandia National Laboratories, and industrial partners. Together with workshops, visitor programs, the long-running Southwest Quantum Information and Technology (SQuInT) conference, and education and outreach activities, these efforts will accelerate scientific discovery, strengthen the national quantum ecosystem, and prepare a diverse workforce for leadership in quantum information science.